Dimensional Scaling Techniques Applied to Excited States of Atoms (Physics)

The dimensional scaling approach used successfully in elementary particle theory is applied to problems in atomic physics. Applications already made to bound state problems suggest that the method, like other perturbation theories, has some potential as a quantitative tool in atomic physics. The applications anticipated here are to problems involving the doubly excited states of He. These states are autoionizing and the work would be the first such application of the 1/D expansion to the continuum problem. The method has the advantage that it treats collective motion of the particles much more easily than other approaches. This is important for an accurate description of the excited states of He.